Singularities of Nonlinear Heat Equations; and Related Problems in the Calculus of Variations

Author: [email] (Sigurd Angenent) at NOTE Date: 3/10/98 4:39 PM Priority: Normal TO: cberenst at nsf11 Subject: Re: DMS-9800894 ------------------------------- Message Contents ------------------------------- Here is the one page description of my research proposal which you requested. The PI intends to study nonlinear elliptic and diffusion equations by investigating the singularities their solutions may have. The particular equations to be studied include Curve Shortening (and variations thereof) Mean Curvature Flow, the Harmonic Map Flow, the Ricci Flow and the Porous Medium Equation. The proposed method is to find formal asymptotic expansions of solutions near their singularities, and then to devise analytical methods to decide whether or not solutions with the found singularity types can exist or not. A good understanding of nonlinear diffusion equations and the singularities of their solutions may lead to the resolutions of old problems in differential geometry, as it has done in the past. Apart from this purely mathematical interest, nonlinear diffusion equations appear in a wide range of science and engineering contexts. E.g. the Porous Medium Equation describes the flow of a viscous material (like oil) through a porous medium (sand). So- called "Curve Shortening " has been used both for enhancement and for automated analysis of video images, and in particular medical MRI images. A good understanding of nonlinear diffusion equations provides computer scientists and engineers with a new set of mathematical operations which they can use in image processing. --Sigurd Angenent